Paradigms and Protocols for Real-Time Digital Video and Audio Services in Distributed Computing Systems

With networks and storage devices beginning to offer very high capacities, distributed systems can support communication and file services in the digital video and audio domains. The project investigates paradigms and protocols for multi-media services that support visual/voice conversations and allow selective storage/retrieval of parts of a converstation. Conferencing is used as the basic paradigm for accessing any multi-media service. For instance, to retrieve digital video a client establishes a conversation with the video file service; to record parts of a conversation, the file service joins as a party to the conversation transforming it into a conference; for entertainment during idle periods, a client joins a background conference with the HDTV service. The project is developing precise models and connection management mechanisms for a powerful multi-level multi-channel conferencing paradigm. The project uses conversational file systems for storage/ retrieval of multi-media data. The file systems handle gigabyte file sizes and handle inter-media synchronization. Multi-media communication requires protocols that provide performance guarantees, and support multiple media streams while preserving temporal relationships among the streams. The project investigates the design of such protocols and algorithms for allocation of resources to performance guaranteed channels. The outcome of the research is software architectures, protocols, and algorithms that will enable multi-media computing systems to replace real-world services such as physical mail, telephony, news, advertising and video/audio entertainment.